BOGS: A Traveling Exhibit

The museum of Science proposes to travel a 3,000 square foot exhibit entitled "Bogs". The exhibit will introduce a poorly understood habitat, acidic wetlands, in an interdisciplinary way. the peculiar physical features of bogs has led to a popular view of them as fearful and unhealthy places. This view has led in turn, to their destruction. To show the value of bogs, the exhibit will display their unique natural history. In addition, the exhibit will explore the relationship between people and bogs in modern and pre-historic times. in Europe and in North America. The exhibit will debut at the Museum of Science, and then tour to other museums in North America.